Indian Ocean Currents: The WHP Shipboard and Lowered ADCP Survey in the Current of Models and Other Measurements

9818947

Firing

In this project PIs will analyze data from Acoustic Doppler Current Profilers (ADCP) used during the Indian Ocean Survey carried out as part of the World Ocean Circulation Experiment (WOCE). Shipboard ADCPs provided high resolution sections of velocity in the upper 300 meters along the survey lines. Lowered ADCPs (LADCP) provided full depth profiles at every hydrographic station along the tracks. The central objective is to describe the ocean current field in the Indian Ocean, with emphasis on the deep lowered ADCP data set. The study will also include use of other parameters measured such as temperature, salinity, chemical tracers, float and drifter tracks, satellite altimetric sea level measurements, etc. Observed currents will be compared with numerical general circulation model output to evaluate the models' ability to mimic the phenomena and dynamics of the ocean.